Development and Implementation of a Modern Environmental Engineering Curriculum Conference; Summer 1990, University of California's Arrowhead Conference Center

This is an award to support conduct of a workshop/conference to assist in structuring a program leading to an undergraduate degree in environmental engineering that would prepare students for a productive role in professional practice, provide opportunities for independent study, and prepare them for graduate work. The workshop will be scheduled for a four-day period in the summer of 1990 at the University of California's Arrowhead Conference Center. The large growth in environmental issues has resulted in a demand for engineers that is not now being adequately met. This is a result partially of the process through which education in environmental engineering has evolved which, in effect, requires students to obtain graduate degrees for entry-level positions. This suggests a need to reconsider the process by which environmental engineers are prepared for professional careers. Results of this workshop will provide guidance in potential structuring of an environmental engineering program including opportunities for conduct of research at institutions offering primarily undergraduate degrees in engineering.